Research Training in Geometry at the Interface with Physics

This is a proposal to harness the special resources at Stony
Brook to train students and post-docs in geometry and its
interaction with mathematical physics. The plan involves a
radical shift from standard curricula and should be broadly
appealing to young people who are considering the possibility of a
career in mathematics.

Stony Brook has a large, highly active (and interactive) group
of geometers representing nearly all aspects of the field
from algebraic geometry to string topology.
A substantial part of the research of this group is related to and/or
inspired by modern physics, and there is a long tradition of
interaction between Stony Brook's mathematicians and physicists. This is
represented in collaborations, seminars, joint students, and
conferences, as well as two major programs in mathematics and
physics, funded outside the NSF. This is a proposal to use these
resources in new, effective ways for the training of young researchers.

The proposal aims at: (1) incorporating the high-level seminars and
workshops into the training of students at an early point by close
mentoring, (2) bringing students more quickly and effectively to the
research level, (3) training students and post-docs in the dual cultures
of geometry and physics, (4) giving undergraduates a taste of
mathematical research at the interactive level.

If successful this could lead to an adoption of new models for
undergraduate development and graduate education. It should produce
more effective researchers and therefore lead to better careers
in mathematics. A fundamental outcome would be the attraction of more
U.S. citizens into mathematics in general and these fields in
particular, because this program offers close personal supervision,
an interactive and challenging environment and strong intellectual
appeal. Another important outcome would be a new generation trained
from the beginning in the dual cultures of mathematics and physics.
This should lead to even greater communication between these fields in
the future.